GEOMETRIC DIFFERENTIAL EQUATIONS AND APPLICATIONS

ABSTRACT

GEOMETRIC DIFFERENTIAL EQUATIONS AND APPLICATIONS
P.I.: Gang Tian (M.I.T.)

This proposal concerns existence and regularity problems of the Einstein
equation, the Yang-Mills equation on Riemannian manifolds and
pseudo-holomorphic curves, as well as applications of these equations to
geometry and topology. For the Einstein equation, we will focus mainly on
(1) the existence of its solutions, particularly, K\"ahler-Einstein metrics
in complex geometry and (2) behavior of its singular solutions. I will also
study the associated K\"ahler-Ricci flow and its soliton-type solutions.
The Yang-Mills equation is a nonlinear equation and may have singular
solutions. We will study the basic problem how singular solutions behave
along their singularity, e.q., the size of singularity. It has been found
in my previous works that there is a connection between singularity
formation of Yang-Mills fields and classical minimal submanifolds. I intend
to explore this more and its related compactness problem for Yang-Mills
fields, particularly, the interaction between self-dual solutions the
Yang-Mills equation and calibrated geometry. I also intend to continue his
study in symplectic geometry. The problems include symplectic isotopy
problem in a rational surface and its applications toward classifying
symplectic four dimensional spaces, computing well-defined symplectic
invariants, such as the Gromov-Witten invariants, constructing new
deformation invariants.

Problems in this proposal arose naturally from our attempts to
understanding nonlinear differential equations from geometry and physics.
These equations include static Einstein equation, Yang-Mills fields as well
as holomorphic maps. They played a fundamental role in our understanding of
nature through mathematical means. They also have found many deep
applications in geometry and topology, such as Seiberg-Witten theory,
Mirror symmetry of Calabi-Yau spaces. The resolution of these problems will
provide mathematical foundations for some physical theories and have
profound applications to long-standing mathematical problems. Most natural
phenomena are nonlinear and possess singular behaviors. These are reflected
in possible singular solutions to the differential equations which describe
those phenomena. It is still challenging to have a complete mathematical
understanding of these singular solutions. This proposal will address some
of these basic problems. I will also try to find more solutions of these
nonlinear equations -and apply them to studying basic problems in geometry
and topology.